SGER: Enabling Cyber-Physical Systems

This SGER award supports a study that will contribute to a new Cyber-Physical Systems (CPS) vision being developed in NSF's Computer and Network Systems division. The goal of CPS research is new science and engineering methodologies that integrate the interacting cyber and physical elements of future engineered systems. CPS seeks new design principles and systems technology that can routinely yield high-confidence physical and engineered systems. This study will develop a consolidated statement of research needs and a research agenda for next-generation cyber-intensive physical and engineered systems, based on a series of workshops, discussions, and ongoing community interaction.